Integrating Ethics Into the Database Curriculum

This proof-of-concept NSF CCLI-EMD project, "Integrating Ethics into the Database Curriculum," is developing a set of privacy modules to be used by computer science educators in the introductory database theory and design course. Building on the recommendations of ACM/IEEE Curricula 91 and 2001 and the NSF-funded ImpactCS project, this project helps to sensitize undergraduate computer science students to database privacy issues by providing computer science educators with the resources and support necessary for the inclusion of ethics coverage in their database classes.

The instructional material under development includes classroom exercises, student assignments and examination questions that apply ethical theory to the analysis and resolution of privacy issues that arise naturally at each stage in the database development process. The modules are to be introduced systematically throughout the course, providing students with the experience of addressing privacy concerns throughout the development of a database.